Microcomputer Laboratory for Calculus Instruction

A computer laboratory in the Department of Mathematics at Lexington Community College of the University of Kentucky will facilitate the restructuring of the calculus sequence. Computer assignments and writing of reports will be a main focus of the teaching strategy.